Creating a Community of Scientists, Supporting PUI Faculty and Undergraduates at the American Society for Biochemistry and Molecular Biology National Meetings

The goal of this project is for the American Society for Biochemistry and Molecular Biology
(ASBMB) to create a culture of inclusion and a sense of community for primarily undergraduate
institution (PUI), Minority Serving Institution (MSI), and Community College (CC) faculty
and undergraduates at the ASBMB Annual Meeting. This will be accomplished by increasing the
visibility of high quality, outcome-oriented undergraduate research and by offering enrichment
events for PUI, MSI and CC faculty and undergraduates throughout the meeting.